Conference: SYncying NSF Ecosystems for Realizing Generative SynergY (SYNERGY) in Electrifying Biomanufacturing

This project will bring together and coordinate the research efforts of the CREATE Biofoundry, CURB Engineering Research Center and CSOE Center for Chemical Innovation. The goal of the coordinated research activities is to generate advances in field of electrifying biocatalysis. By integrating the structural and intellectual assets of the three Centers, this project will advance fundamental knowledge in electrochemistry and bioengineering, and to lead to innovations in electro-biomanufacturing. The proposed activities will facilitate the training of early career scientists, provide many opportunities for networking, and lead to the development of a highly trained and skilled STEM workforce.

This project will bring together and coordinate efforts among the CREATE Biofoundry, the CURB ERC, and the CSOE CCI, with the goal of developing shared plans to generate future advances in electrifying biocatalysis through synergy between the Centers. These plans will be executed in three structured phases. Phase 1 includes meetings to understand the goals and culture of partner Centers. In phase 2, the goal is to create low-stakes interactions that build familiarity and trust. The goal of phase 3 is to achieve generative collaborations to deepen connections and to develop future plans. The fundamental scientific value of this convergence lies at the intersection of electrochemistry, electrochemical engineering, synthetic biology, and biomanufacturing. By integrating the structural and intellectual assets of the three Centers, this project lays the groundwork for an advanced electrochemical biomanufacturing field that leverages CREATE’s biofoundry infrastructure and biological engineering platforms necessary to optimize enzymatic and microbial systems for operation within harsh electrochemical environments. CSOE contributes fundamental knowledge on electrocatalytic and redox mechanisms, and CURB delivers scalable, hybrid bio-electro systems and carbon utilization strategies.